Center: Princeton Center for Complex Materials

Nontechnical Description

The Princeton Center for Complex Materials, a Materials Research Science and Engineering Center (MRSEC), brings together teams of scientists and engineers from several different fields to discover and design novel materials for next-generation technologies that will be responsive to modern society needs. The Center pursues two complementary lines of research. The first creates novel electronic materials that can lead to faster and more energy-efficient electronics, more sensitive sensors, and the building blocks of future quantum computers. The second takes inspiration from the way living cells organize themselves to build programmable, life-inspired materials that can advance medicine and more sustainable manufacturing. Beyond these discoveries, the Center is also a hub for hands-on education and training. It offers research experiences for students from high school through graduate school, trains postdoctoral researchers, hosts a summer science camp for local high school students, and reaches undergraduates at community colleges, helping to develop a skilled materials workforce for the future. Each year these activities reach more than a thousand people of all ages, making the Center a major science resource for its region. By combining frontier research with wide public engagement, the Center delivers both new knowledge and lasting benefits for the economy, for national security, and for the well-being of the public.

Technical Description

The Princeton Center for Complex Materials MRSEC organizes its research in two Interdisciplinary Research Groups (IRGs). The first IRG addresses the discovery, synthesis, and control of quantum materials, where a central challenge is that many of the correlated and topological phases of interest reside in materials that are difficult to synthesize or to probe by conventional means. The research team develops new synthetic routes, including reactions carried out inside nanoscale van der Waals (vdW) reactors that access metastable and low-dimensional crystals, and it couples synthesis directly to computation. Guided by machine learning, a symmetry-aware model of crystal structure, and autonomous, robotically assisted experimentation, the team builds libraries of flat-band and twisted vdW superlattices and screens them for emergent electronic order. Local probes, including scanning tunneling spectroscopy, electronic compressibility measurements, and diamond nitrogen-vacancy magnetometry, are used to resolve correlated, magnetic, and topological states, among them fractionalized excitations and hybrid superconducting structures. The second IRG establishes the materials science of biomolecular condensates, the membraneless assemblies that cells form by liquid-liquid phase separation. Its goal is to relate biomolecular sequence and composition to condensate material properties, such as interfacial tension, viscoelasticity, and molecular partitioning, and to encode those properties on demand. The team integrates chemically specific coarse-grained simulation, machine-learning models of the sequence-to-property relationship, continuum theories of multiphase morphology and coarsening, and quantitative experiments that use microfluidics, micropipette aspiration, and multi-wavelength optogenetic control to characterize and reconfigure condensates, with target demonstrations as actuators, microreactors, and capture-and-release vessels. Together the two IRGs advance the fundamental understanding of quantum and far-from-equilibrium matter while pointing toward technologies in microelectronics, sensing, biomanufacturing, and human health. Shared instrumentation anchored by the Imaging and Analysis Center supports this research and a wide external user community.